SGER: Soil Solidification by Magnetorheological Fluids

The potential usage of magnetorheological fluids (MRFs) for temporary in-situ
solidification of coarse-grained soils is being investigated. Should magnetorheological
materials be successfully introduced into the pore space of a soil and solidified by
application of a magnetic field, they could significantly improve our ability to sample
saturated or dry cohesionless soils with minimum disturbance. The cost savings over
pore fluid freezing could be very significant. Other potential future applications of MRFs
in geotechnical engineering may include: stabilization of soil for excavation and
tunneling, control of seepage and contaminant migration, liquefaction hazard reduction,
control of machine vibrations, soil surcharging to accelerate pre-construction settlement
and others. The present exploratory laboratory program will include tests for hydraulic
conductivity, stiffness, strength, volume change susceptibility due to vibration, and
stability of open cuts in MRF-stabilized soils.